ENGINEERING RESEARCH EQUIPMENT: Gas Chromatograph for Catalyc Combustion

A gas chromatograph is being obtained to be used for combustion research. Research activities which will benefit from the acquisition of this instrument include studies of catalytic effects in diesel engines, surface reactions in catalytic combustion, and hazardous waste incineration.